Workshop on "Advances in Nonlinear Science"

This award provides funding to help defray the expenses of graduate students and postdocs attending the Advances in Nonlinear Science that will be held on March 14-16, 2013, on the campus of the University of Pittsburgh.

The workshop aims to bring together leading experts and researchers in nonlinear partial differential equations (both on the applied and theoretical sides), with an emphasis of the Theme Semester on the modern game theory with applications. The proposed conference builds on the relevance and applications of stochastic methods applied to non-linear partial differential equations that stem for recent developments in game theory. The keynote speakers have been confirmed and represent top figures in mathematics. These are: E. DiBenedetto of Vanderbilt University, R.V. Kohn of New York University, L. Mahadevan of Havard University and G. Strang of MIT. Between 30-40 participants are expected to participate in the workshop, the majority of whom will be from outside of the University of Pittsburgh. Special attention will be paid to the recruitment of women and minorities participants.